An Evaluation of the Utilization of Robotics Technology in Pharmacy Practice

9402319 Crawford The proposed cross-disciplinary (pharmacy and engineering) study will examine the impact of robotics technology in pharmacy practice. This Planning Grant activities will include development of a statistically based simulation model of the unit-dose medication cart filling process fop a hospital pharmacy department. Activities will also include examination of attitudes about the utilization of robotics technology in pharmacy practice. %%% The PI has been trained in the field of Pharmacy Administration, and not trained in the area of process simulation and modeling-a component of the planned proposal. A senior investigator is listed within the planning grant with a specialty in process simulation and modeling. This senior investigator will serve as a mentor to allow the PI to develop an expertise in the process simulation and modeling within the 12 month period allotted to the planning grant. ***